Toward Architecture Independence in Massively Parallel Scientific Algorithms:Experiments with Formally Derived LU- decomposition Algorithms on Bus Connected SIMD & MIMD Mach.

This project will explore methods for developing efficient parallel multiplatform array algorithms and implementations. The research will mainly focus on decomposition in preparation for the solution of a number of important problems in computational linear algebra. The decomposition will be implemented on a variety of SIMD and MIMD machines, both with and without shared memory, under various interconnection schemes. Formal methods based on a functional language with arrays for deriving/developing array algorithms.